SBIR Phase I: Integrated Lens-Laser Packaging Approach

The objective of this Small Business Innovation Research Phase I project is to develop an integrated optical and electrical packaging technique that allows for the precision placement of high density, large arrays of VCSELs, LEDs, or photodetectors coupled with arrays of microlenses.

The computed radiography market is $1B annually, and this innovation would enable smaller, more reliable and higher resolution systems. In the long run, the application of precision optical assembly techniques may have an impact on the revolution taking place in chemical, biological and medical analytical instrument and sensing devices.